CALCRUST: A Regional Study of Crustal Structure and Evolution

This award provides funds to continue CALCRUST (California Consortium for Crustal Studies) activities for one year. CALCRUST is a regional consortium of earth scientists from California with a common interest in crustal structure and evolution. CALCRUST provides a common focus for a multifaceted, crustal-studies team with expertise ranging from geology to reflection seismology and seismic data processing. The CALCRUST scientific program is addressing important questions regarding continental accretionary tectonics, the mechanics of crustal extension and compression, modes of deformation in the seismogenic regions of southwestern U.S., the structure of batholiths, and basement tectonics of the petroliferous basins of coastal California. An important focus is on low-angle structures -- their geometry and continuity in the subsurface. CALCRUST seeks to extend to the third dimension our reasonably complete understanding of the surface geology, and begin the process of establishing relationships between the apparent diversity of geologic terranes in southwestern U.S. During the period of this award, the focus will be on completing the analysis and interpretation of data in hand, both the reprocessing of donated industry data and data gathered under CALCRUST contract, and the publication of results.